Engineering Research Equipment Grant: Microwave Impedance Measurement System for Biomedical Engineering

The purpose of this fundamental bioengineering research is to determine the effects of hyperthermia on the viability of tumors and the reshaping of the cornea. The PI will conduct a research program of experimental and theoretical investigations designed to illuminate the reshaping of the cornea in order to correct for visual defects. Information from such studies could have a profound affect upon clinical treatment of severely impaired eye sight.